SGER Award: A Novel Design for a Cavity-Dumped Millimeter- Wave Laser

A compact CO2-CH3F laser system consisting of a millimeter-wave resonator inserted in a three-mirror CO2 laser cavity with an optically-switched semiconductor cavity-dumper, will be tested. The cavity-dumped oscillator is expected to be characterized by predominantly single longitudinal mode, narrow linewidth operation at 1.207mm. It should produce peak powers of order 100kw in pulses of order 10ns duration. Such output characteristics will prove useful for new experiments involving the resonant excitation by electromagnetic waves of transverse acoustic (TA) waves in semiconductor superlattices. Coherent, monochromatic TA phonons can be generated in GaAs sawtooth-doping superlattices consisting of periodic alternating n- and p-type doped sheets, when the phonon wavevector k is an odd multiple of 2n/d (d = superlattice period) at the resonant frequency w=vk, where v is the TA sound velocity.